Proposal for a Conference on the Geometry and Topology of Manifolds

Abstract

Award: DMS-0406314
Principal Investigator: Crichton L. Ogle

This award provides partial support for participant costs of a
conference on the "Geometry and Topology of Manifolds" at Ohio
State University. The main themes of the meeting are invariants
of manifolds arising in square-integrable cohomology, K-theory,
and geometric group theory. Invited speakers and other
participants include a number of female mathematicians, recent
PhDs, and graduate students.

A manifold is a geometric space in which every point has
neighborhoods that can be identified with Euclidean space of some
dimension. For example, every point on the surface of a
2-dimensional sphere lies in an open hemisphere that can be
flattened onto the Euclidean plane by a map projection. An
example of a higher dimensional manifold would be the space of
physical coordinates for three particles moving in the plane
without collisions: each particle's dynamical data consists of
two position and two velocity coordinates, thus each of the three
particles requires four numbers to record its dynamics and to
report all three moving particles simultaneously calls for twelve
coordinates. "Invariants" of manifolds are computable objects
(not necessarily numbers) that help us tell one space from
another, and some of the known invariants can be constructed by
methods of calculus (such as square-integrable cohomology),
algebraic tools (K-theory), and by looking at very long-range
behavior of the manifold or of algebraic objects associated to it
(geometric group theory).